Continuation of UConn Research Site of I/UCRC for Pharmaceutical Processing

The Industry/University Cooperative Research Center (I/UCRC) for Pharmaceutical Processing was established at Purdue University to partner with pharmaceutical companies to gain understanding at the molecular level, to the effects of processing on critical qualities of pharmaceutical products and to improve process monitoring with the goal of minimizing validation requirements. The I/UCRC has become a multi-university Center now encompassing University of Connecticut, University of Puerto Rico and the University of Minnesota.

The University of Connecticut researchers will enhance the Center's expertise in:

- Stability behavior and characterization of proteins in both solution and solid state,
- The science and technology freeze drying,
- Materials science of amorphous pharmaceuticals,
- Tablet coating science and technology,
- Dissolution behavior, and
- The study of disperse systems with a focus on emulsions, interfacial characterization, and micro-encapsulation